Neuroendocrine Factors in Hibernation

It is well-established that a wide variety of organisms, including humans, have internal, biological clocks that are instrumental in allowing them to maintain synchrony to both daily (i.e. circadian) and annual cycles of environmental change. Most mammals are exposed, on a daily basis, to environmental cues such as sunrise and sunset or day/night temperature fluctuations. These cues are used to synchronize their internal clocks to local environmental time. To understand the biological time keeping systems used by mammals, Dr. Goldman examines animals in hibernation. He will determine the hormonal and neural mechanisms that these animals use to time and coordinate the end of hibernation. Dr. Goldman's work will provide significant insights into understanding how the internal clocks continue to function in an environment where the animals remain sheltered for a significant period from most environmental cues. These results will increase our understanding of the physiological mechanisms regulating the maintenance of internal clocks and, therefore, may contribute to the development of treatments which would reduce the detrimental consequences associated with jetlag.